Upgrade of NMR Facility

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at the University of Minnesota acquire upgrades for three existing liquids NMR spectrometers that will be used in research investigations in the following areas of chemistry: organic chemistry (natural products synthesis, development of synthetic methodology, drug design, and chiral catalysts), inorganic chemistry (organometallic chemistry, metal clusters, and bioinorganic chemistry), and biological chemistry (oligopeptide structure, methods for oligosaccharide sequencing, metalloprotein structure, and protein-DNA/RNA interactions). Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.